PostDoctoral Research Fellowship

This award is made as part of the FY 2013 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist. The title of the project for this fellowship to Stacey Alexeeff is "Statistical Methodology for Modeling Big Data to Quantify the Effect of Climate Change on Air Pollution and Human Health, with a Focus on Model Uncertainty." The host institution for the fellowship is the National Center for Atmospheric Research, and the sponsoring scientist is Dr. Stephan Sain.